Mathematical Methods for Chaotic Advection in Three-Dimensional Fluid Flows

DMS 9803555

Mathematical Methods for Chaotic Advection in Three-dimensional Fluid
Flows

PI: Igor Mezic

The goal of the proposed research is to extend the existing theory of
chaotic advection and mixing in two-dimensional, time-dependent flows.
In particular, we wish to study three-dimensional incompressible steady
and unsteady and two- and three-dimensional compressible flows using
the methods of geometric theory of dynamical systems. We will also
study effects of reaction and diffusion on the motion of particles in
these flows, properties of chaotic advection in general, and particular
models of great relevance in engineering applications: flows between
concentric and eccentric rotating cylinders. These problems will be
addressed starting from our recent developments in geometric theory of
three-dimensional divergence-free vector fields. The issues of
cantori, resonances and lobe dynamics in volume-preserving maps and
flows will be addressed through theoretical analysis and computer
simulation. Connection with experiments on mixing in three-dimensional
flows will be made. Effects of inertia and viscosity on chaotic mixing
will be studied via asymptotic, large Reynolds number analysis in
conjunction with the transport theory of dynamical systems. This will
allow for discussion of the change of mixing properties of laminar,
incompressible, viscous flows with the change of the Reynolds number.
Further, we will study the effects of molecular diffusion on chaotic
advection based on the perturbative multiple-scales method combined
with ergodic theory, and through numerical simulations. We will
investigate a general relationship between the pure advection problem
(possibly with chaotic mixing) and the full advection-diffusion
problem. We will study reaction-diffusion-advection equations through
the combination of tools mentioned before. We shall pursue nonlinear
stability analysis in search of effects of chaotic advection on
stability. The particular examples we will be studying are flows
between concentric rotating cylinders. Compressible flows received
virtually no attention in chaotic advection studies. We propose to
remedy this situation by pursuing a basic study of this problem.
Simple model flows will be identified starting with a compressible
vortex flow in a cylindrical container. Comparison with the behavior of
incompressible flows will be pursued.

The above study is useful in a variety of technological contexts. There
is a recent surge of interest in micro- and nano-scale technology that
poses a number of mathematical challenges. For example, flows in
devices such as large mixers and combustion chambers are designed to
mix well by moving the flow in a turbulent regime and thus causing
enhanced mixing by rapid random movements of fluid in the flow. This is
not possible in microscopic devices. The process of mixing needs to be
understood much better in order to design microscopic mixers,
combustion chambers etc. necessary as the building block of
microscopic processing devices and microengines. The mixing process in
such devices is typically three-dimensional. Thus, the design of
microscopic mixing devices will benefit from the fundamental study of
three-dimensional mixing processes outlined above. In addition, the
performance of macroscopic devices is challenged by new requirements
on the levels of environmental chemical pollution (NO_x) and sound
pollution. The improvement in the design of these devices will be based
on a better understanding of the underlying mixing processes. The above
study will provide some of the crucial concepts for such design by
unraveling the fundamentals of mixing in three-dimensional flows and
using these concepts to study the effect of mixing on combustion and
noise production.